SBIR Phase I: Target Tracking and Identification Using a Holographic Correlation Filter

*** 96-61084 Sayanl This Small Business Innovative Research (SBIR) Phase I project will investigate an optical correlator for tracking and identifying objects in a cluttered or noisy field. Filter algorithms for improved signal to noise and reduced rotation dependence will be developed and tested in the optical correlator system with multiple in-class and out-of-class objects. Commercial applications include manufacturing process control, automation inspection, image analysis, and surveillance. ***